Reindeer Herding in Transition: Feedbacks Between Climate, Caribou, and Local Communities in Northwest Alaska.

Significant change has occurred in reindeer herding in the Seward Peninsula, Alaska, due to the migration of large numbers of the Western Arctic Herd caribou onto the Peninsula in winter. This research would study the environmental and socio-economic conditions of this change. The work would identify climate factors that influence herding practices and would evaluate the role of reindeer herding in the subsistence economy. The research will examine the ecological impacts of caribou grazing on ecosystem sustainability. Finally, it would model the socio-economic consequences of losses via migration out of the region and via range deterioration as well as changes in herd management in order to design strategies for herd management that would mitigate these impacts. The work would involve local and educational communities.